Acquisition of an Inductively Coupled Plasma-Mass Spectrometer at the Scripps Institution of Oceanography

0079307
Castillo
This Major Research Instrumentation award to University of California, San Diego's Scripps Institution of Oceanography provides funds for acquisition of an inductively coupled plasma-mass spectrometer for earth, ocean and environmental sciences research. It will be used for a wide variety of projects, and will include both undergraduate and graduate student in research and training. It will be managed as a recharge facility, available to many researchers and students at UCSD and other regional universities. The project is supported by the Division of Ocean Sciences at NSF. Scripps Institution will provide cost-share support for 50% of total project costs.
***